Studies of MBE-grown Incommensurate Heterostructures Based on Metals and Semiconductors

This research deals with the growth mechanisms, structure, and physical properties of incommensurate molecular beam epitaxy (MBE) heteroepitaxy of metal and semiconductor overlayers. The heterostructures will include Ta-Nb and Co-Au superlattices. These overlayers will be deposited on III-V semiconductors as well as sapphire and silicon substrates. Part of the work will address growth processes encountered in migration enhanced epitaxial deposition.